Upgrade of a 400 MHz NMR Spectrometer For Chemical Research

With this award from the Chemistry Research Instrumentation and Facilities (CRIF) Program, the Department of Chemistry at Tulane University will upgrade a 400 MHz NMR Spectrometer. This equipment will enable researchers to characterize a) new main group compounds, organometallic compounds, and natural products; b) novel organic precursors for organic materials development; c) bioactive organic reactants; and d) multimetallic transition metal complexes.

Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, to characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometry is essential to chemists who are carrying out frontier research. The results from these NMR studies will have an impact in a number of areas including materials chemistry and biochemistry.